Center for Microbial Ecology

The Center for Microbial Ecology at Michigan State University is dedicated to understanding the underlying principles of microbial ecology with specific emphasis on the competitiveness, diversity and function of microorganisms in natural and managed habitats. Results of center supported research will impact directly on all areas where microorganisms play a dominant role; eg. groundwater quality, hazardous waste disposal, plant productivity, and the regulation of agricultural and environmental biotechnologies. Around the largest group of microbial ecologists in the world, the Center has gathered researchers and students in molecular genetics, ecology, chemistry, engineering, mathematics, and computer science. Research is organized into thrust areas that require multidisciplinary teams of scientists which results in a unique interdisciplinary research and educational environment. Educational activities emphasize training graduate students and postdoctoral fellows but also include a vigorous multi-level outreach program. An industrial alliance program facilitates knowledge transfer from the Center to industry and stimulates mutually beneficial collaborative projects with the private sector. The Center's strong linkages with federal, state and local agencies will have a significant impact on policies promulgated by these agencies on issues related to microbial ecology and the environment. Finally, the Center has established three unique collaborative research programs with Japan, the USSR and Denmark which will provide exchange students and faculty with intellectually and culturally broadening experiences.